ROW: Applications of Liquid Crystalline Materials Near Their Transitions as Sensing Devices (REU)

The main purpose of the research is to use unusual physical and chemical properties of liquid crystalline materials as sensing devises and permit the principal investigator to use basic and fundamental information in an important area of applications.